Mission To Planet Earth: Scenario Development for Challenger Learning Centers...

The Challenger Center for Space Science Education located in Alexandria, Virginia, a nonprofit organization with a mission to increase the number of youth interested in science and space, is requesting $303,170 over two years from the National Science Foundation (NSF) to develop a new scenario for its Challenger Learning Centers. Located in science centers. museums and schools around the country. Learning Centers house equipment and educational programming for hands-on training during a simulated mission. Scenarios use mathematics, science and problem-solving skills to provide participants with simulated experiences of working in a space laboratory and a "Mission control" laboratory. Challenger Center requests assistance and partnership from NSF to develop, field test, implement and evaluate a new scenario on the environment, "Mission to Planet Earth" scenario. This project will involve collaboration of expert scientists, educators, Challenger staff, and science museum professionals. Annually more than 180,000 students and between 10,000 and 15,000 adults will participate in the scenario at Learning Centers, using space as a format for learning about environmental issues. Challenger is working on the preliminary planning stage between June and December 1991. Two years of funding are requested from NSF beginning in January 1992.